Surrogate-Based Modeling of Joint Contact Mechanics

Fregly
0602996

The main objective of the project is design an integrated research and educational framework for surrogate-based modeling of articular (i.e., surface-surface) contact in dynamic musculoskeletal models. The PI and his team will develop novel surrogate modeling approaches to allow rapid dynamic simulations and optimizations of musculoskeletal models with multiple articular contacts. The educational and outreach component of the project will include a broad audience ranging from minority and female high school students to researchers in academia and industry. The project would have a great impact on musculoskeltal biomechanics research, especially in surgical simulation and implant design, and possibly on more clinical practices.